Role of NT-3 in the Developing Limb Proprioceptive System

9511297 Kucera Neurotrophins are small protein molecules that are important for the well-being of cells in the brain and spinal cord. One of these neurotrophins is neurotrophin-3 (NT-3). This research will examine how NT-3 affects the development of a special type of proprioceptive sensory neuron that provides information to the brain about the position of the body and limbs in space. The research will be done on genetically altered animals that lack the gene necessary for the assembly of NT-3. These animals have a very severe movement disorder suggestive of dysfunction of the entire proprioceptive (body position) system. These animals will be analyzed using a variety of techniques to find out why and how the neurons become dysfunctional in the absence of NT-3. The study will generate data concerning how neurotrophins aid neurons in the growth process during development. Knowledge derived from this work will provide fundamental information about the effects of neurotrophins during the development of the nervous system.